CAREER: Multiphase Sediment Transport Modeling Framework

OCE-0644497

A better understanding and the ability to predict coastal sediment transport processes are important in order to preserve the nation's coastal resources from natural disasters and human impacts. Being able to accurately predict large-scale coastal processes is dependant upon on having a detailed understanding of small-scale sediment transport that takes place along the coast.

Intellectual Merit: Accurate prediction of large-scale coastal processes relies on detailed understanding of small-scale sediment transport. This project will develop a 3D fullycoupled multiphase LES (Large-eddy simulation) numerical modeling framework for sediment transport. The modeling approach for fluid-particle system utilizes both Eulerian-Eulerian two-fluid formulation to resolve 3D multiphase turbulent flow and Eulerian-Lagrangian formulation for further detailed PDF description of particles that are suitable for coastal sediment transport typical of millions of sediment particles. The new framework resolves 3D flow turbulence, fluid-particle interactions, inter-granular stresses and hence concurrently models the bedload and suspended load. It improves upon existing Reynolds average two-phase models for concentrated transport and single-phased 3D LES models for dilute flow. The educational plan outlines a career goal to establish a diversified Coastal/Oceanographic work force through developing a minority-oriented undergraduate research and education program. The research internship and the development of the undergraduate-level Coastal Engineering course will facilitate effective connection between the existing graduate-oriented Coastal/Oceanographic Program and undergraduate Engineering and Science students at University of Florida (UF).

Broader impact: To preserve the nation's coastal resources from natural disasters (e.g., hurricane) and human impact, reliable predictive tools that allow long-temporal and largespatial
simulation of coastal/estuarine sediment transport processes is vital. The proposed project emphasizes utilizing detailed models to provide improved parameterizations of smallscale processes that can be further utilized by large-scale modelers to develop predictive tools for coastal/estuarine processes relevant to coastal planning and hazard mitigation. Establishing a diversified work force is imperative for this country that has been built upon multiculturalism. Coastal/Oceanographic discipline often deal with hazard mitigation and land preservation, issues that are relevant to economics, communities, and social justice. Hence it is especially vital to ensure broad participation in Coastal/Oceanographic professions. The proposed undergraduate research internship (2 non-UF minority students and 2 UF students per year) joins in and benefits from the existing NSF-sponsored SEAGEP at UF that is committed to increasing the number of minority students to pursue an academic/professional career. The outreach efforts to middle/high school students and teachers illustrate a theme based on "Coastal Hazard and Beach Processes". It will not only promote environmental literacy but also serves as a conduit to introduce to 8-12 grades students a fascinating science/engineering discipline for their higher education.